RUI: CNC Gene and Head Development in Drosophila

9506358 Mohler The identity of individual segments in Drosophila is regulated by the expression of the homeotic genes within specific segments. These homeotic genes encode transcription factors that regulate segment specific expression of other morphogenetic genes. Homologues of many Drosophila homeotic genes have been identified throughout much of the animal kingdom, where they are often expressed in analogous portions of the embryonic body plan. Analysis of the roles of the Drosophila homeotic genes and of the interrelationships among these genes during Drosophila embryology is likely to provide important developmental principles involved generally in animal development. The cap'n collar (cnc) gene of Drosophila is a recently identified homeotic gene, which is important in defining the identity of the mandibular and labral segments during embryonic development. The research proposed here will continue the analysis of the role of this gene in Drosophila development and initiate studies into the biochemical mechanisms of its function. In particular, this study will characterize the role of cnc in post-embryonic development by the identification of tissues expressing CNC protein during post-embryonic development and by the analysis of the effects of cnc- clones within those tissues. This study will also further define cnc's function as a selector gene through the analysis of developmental defects associated with expression of cnc in inappropriate tissues. Unlike most other homeotic genes which encode monomeric DNA-binding proteins, cnc is unique in encoding a subunit of a dimeric bZIP transcription factor, which is closely related to the p45 subunit of mammalian NF-E2. To investigate the potential role of differential heterodimer formation in specifying alternative developmental fates, other bZIP genes that encode potential heterodimeric partners of CNC will be identified: both potential Drosophila homologs of the Maf subunit of NF-E2 and Drosophila cDNAs en coding peptides capable of binding the CNC leucine zipper domain. The DNA binding specificities of homodimeric CNC and of heterodimeric complexes containing CNC will be investigated. ***